CAREER: Ensuring Sustainable Scalability for Globally-Distributed Systems

The past few years have witnessed a growing number of large-scale
networked systems. Most of these systems are built following an
overlay approach, with each of them regularly and independently
probing its environment to guide path selection algorithms, route
around faulty links and replicate content for availability. As these
systems grow in popularity, such an approach will result in an
unsustainable degree of monitoring and restrict the variety, number
and span of distributed services.

The thesis of this project is that a large fraction of
globally-distributed systems can be built to ensure sustainable
scalability by strategically reusing the view of the network gathered
by long-running, ubiquitous services such as CDNs and P2P
systems. This work defines and explores "3R" - a new approach to the
design and implementation of distributed systems that focuses on
minimizing aggregated control and administrative overhead by
strategically reusing environment's views and recycling previously
gathered measurements. In particular, we are designing efficient
techniques for maintaining, accessing and reusing this information for
building next-generation streaming multicast, content distribution and
data sharing applications.

The work explores the tradeoffs in the recycling/reuse of
environmental measurements, and their implication in
distributed-system design. Ultimately, it will facilitate deployments
of wide-area applications, benefiting society at large. The research
agenda is complemented by a thorough education and outreach plan for
strengthening experimental systems education and contributing to
minority recruitment and retention.